Mathematical Sciences Computing Research Environments

LEIMKUHLER DMS-9628626 The Department of Mathematics at the University of Kansas will purchase a multiprocessor and several workstations dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects in dynamical systems and numerical analysis, in particular: (1) Adaptive Geometric Integrators for Molecular Simulations and Rigid Body Dynamics; (2) Methods for Large Matrix Eigenvalue Computations; (3) Moving Mesh Methods for Time-Dependent Partial Differential Equations in Two and Three Dimensions; (4) Studies in Nonlinear Dynamics and Chaos: and (5) Geometric Visualization and Biological Time Series Analysis.